The Paleoclimate of Iceland over the Last 13,000 Years: A Joint Iceland/USA Contribution to P.A.L.E.

This award supports paleoclimate reserch in Iceland within the framework of PALE (Paleoclimates of Arctic Lakes and Estuaries). Iceland occupies a key position in the North Atlantic in terms of both climatic and oceanographic parameters. The climate of the island is a function of the strength and location of the Icelandic Low, the strength and character of the freshwater outflow from the Arctic Basin, and the location of the North Atlantic Drift. These variables interact to affect the vegetation, hydrology, and glacial history of this area; Iceland thus well placed for developing longer proxy records of climate change.